Reconstituted Skin

9361046 Livesey The objective of the project is to determine whether full thickness composite skin can be reproduced in a relatively short time. The investigator aims to culture keratinocytes onto a processed dermal matrix, AlloDerm, which is currently under investigation as a foundation for a thin split- thickness skin graft. Investigations will focus first on optimizing growth under standard conditions and then in co-culture with dermis. Co- culture conditions will be assessed for the impact on wound healing in the nude mouse model. ***